Fort Monmouth Interaction: Dynamics of Intersubband Carrier Transitions in Quantum Wells and Superlattices

This proposal describes proposed collaborative research project between UCLA and the U.S. Army Electronics Technology and Devices Laboratory (ETDL) through the support of the NSF-Fort Monmouth Interaction Program. The objective of this project is to investigate the ultrafast carrier dynamics of the intersubband transitions in the doped GaAs/A1GaAs quantum-well and superlattice structures. Of particular interest are structures which have resonant intersubband transitions corresponding to optical wavelengths in the 8 to 14 um atmospheric window spectral range. The quantum well will be grown at ETDL in collaboration with Dr. Mitro Dutta. Basic preparation and characterization of the samples will also be carried out at ETDL by a participating graduate student from UCLA. The dynamic processes involved in the intersubband transitions will be investigated at UCLA with tunable picosecond time-resolved infrared spectroscopy. The carrier dynamics as a function of material and structural parameters will also be studied. The results from this research will lead to better understanding of the ultrafast carrier dynamics in the intersubband transitions and will enable us to determine the dominant processes involved. This knowledge is of crucial importance for the future development of the infrared devices based on the intersubband transition process in the quantum wells and superlattices.